Digital Government: Scalable Data Collection Infrastructure for Digital Government Applications

EIA 0091474
Hanan Samet
University of Maryland

Digital Government: Scalable Data Collection Infrastructure for Digital Government Applications

This project in collaboration with the Internal Revenue Service, the Department of Justice, and the US Census Bureau will explore the collection of data over wide-area networks. Of particular interest are situations with high submission volume from a variety of sites to one agency (hot spots); e.g. the submission of electronic tax forms to IRS in the April 14-14 timeframe. Within that context, research issues will include scalability, and privacy/integrity. Other possible government applications include submissions of proposals at deadlines, such as the NSF Fastlane system, and voting in digital democracy. The technology to be developed will work at the application layer of TCP/IP, implementing a small set of primitive services.